Identifying Quantitative Trait Loci from Sequence Data in Natural Populations

In the quest for locating and determining the effect of underlying genetic contributions to individual phenotypes, the advances made available through current molecular techniques now make it possible to generate sequence data from several hundreds of sites across a given species. Thus, the possibility exists to develop a method to address the association between DNA sequence and phenotype in natural populations. This project develops a statistical methodology to detect DNA sequence associated with quantitative phenotypes in natural populations. The project also develops methods to accurately select the correct underlying modes of inheritance responsible for generating the observed qualitative variation. Th statistical methods developed by this project are made easily accessible and freely available through provision of public domain software and web access.